Mathematical Sciences: Mathematical Tools for Image Reconstruction

This project deals with inverse problems and in particular the problems associated with constructing an image of an object using limited data. Applications range from medical imaging with X-ray and nuclear magnetic resonance devices to radar detection. The techniques employed include automatic symbolic manipulation, soliton theory and spectral theory.